School in the Exploratorium Leader Teacher Program

School in The Exploratorium Leader Teacher Program is a two tiered program consisting of a series of ten-day introductory workshops designed to introduce 300 teachers to a basic approach to hands-on science instruction and a two-year leader teacher internship program designed to develop a cadre of 78 well-trained leadership teachers working in the same districts who understand the principles of inquiry- based learning and can support the activities of their colleagues. The three year program is based physically and philosophically at the Exploratorium, taking advantage of its exhibits and other facilities to create a rich atmosphere for learning content and process. The program will make it possible for 378 elementary teachers to have support in the classroom by Exploratorium staff and artists and use a Lending Library of materials as they learn an integrated science-and-art approach to the investigations of nature and the everyday world.